The Development of a Facility for Symbolically-Aided Instruction in Mathematics and Physics.

Siena College will undertake the development and implementation of a computer-assisted instructional system in mathematics and physics with high-level symbolic capabilities. The system will utilize a Micro VAX II with SMP, a programmable symbol-manipulation program which will enable student users to communicate with the computer at an algebraic level. Software development will be carried out by Siena's Software Engineering class, under supervision of the principal investigator and other involved faculty. The facility will be integrated into the general physics and introductory mathematics courses, and will be used secondarily by students in the advanced physics courses.